The Fifth Annual Computational Genomics Conference at TIGR, to be held at the Renaissance Harborplace Hotel in Baltimore, MD, November 29, 2001 through December 1, 2001

The goal of the Fifth Annual Conference on Computational Genomics (CG2001) is to bring together leading scientists from around the world to discuss advances in computational methods for analysis of genome sequences. The meeting addresses these topics from the perspective of biological scientists attempting to make sense of the vast quantities of data now becoming available. The goal of the meeting is to provide a forum for a combination of invited speakers, speakers selected from submitted abstracts, and poster presenters to discuss their work and exchange ideas. The support from NSF will provide new funding for student travel fellowships, in order to increase the level of student participation in the meeting. This will also help in the professional development of the students and the long-term development of the field of computational genomics.